Antarctic Accumulation Variations

9725730 Bromwich This award is for support for a study of accumulation rate variations over the Antarctic ice sheet for the last two decades, the period for which reliable atmospheric analyses are available. The twice-daily precipitation rate will be calculated for the 21 years on a 50-km grid using a diagnostic model developed for similar studies over Greenland. Estimates of the sublimation rate will be developed from the best available sources including the atmospheric analyses. The impact of drift snow redistribution on the precipitated snow will be evaluated by combining simulations of the Antarctic surface winds with formulas relating drift snow transport to surface wind speed. The precipitation, sublimation, and drift snow transport divergence estimates will be merged to depict the estimated accumulation rate. The derived accumulation variations will be examined in relation to a wide range of atmospheric and oceanic phenomena to uncover the governing mechanisms. The results will be relevant to studies of Antarctic mass balance and the ice sheet contribution to present global sea level rise, and the interpretation of ice core records covering recent to paleo environments.